Lightweight, Non-Absorbent, Loose-Fill and Batting-Type Thermal Insulations for Cold Climate Clothing

PROJECT DESCRIPTION: This is the second phase of this project, and will continue efforts in researching thermal insulation for use in cold climate clothing derived from Thermalon's licensed polymeric honeycomb technology is proposed in response to the emphatic need for one insulation which (1) has the same low density, compressibility, and long service life as high-quality down, (2) exhibits thermal transmittance equal or better than 550 fillpower down, (3) retains less water, dries faster, and maintains more loft when saturated than down or synthetic fiber insulations, and (4) readily transmits vaporous perspiration to reduce thermal stress during periods of exertion in cold climate environments. A loose-fill honeycomb-like material, with an initial density of 0.14 pounds per cubic foot (750 cubic inch per ounce fillpower), will be created from thin, stiff, resilient polymeric films using in-house equipment. This material, contained between layers of fabric to simulate clothing applications, will be tested to determine thermal transmittance, evaporative heat transfer, water retention, and drying rate. Additional fibers which may be suitable for the honeycombing process will be identified and tested, studies of garment construction techniques will be conducted, use testing will be completed, and a commercialization plan will be developed. Compression cycling and wash cycling will simulate typical garment/sleeping bag life. Control samples of 550 fillpower down and Dupont Quallofil (R) will undergo the same rigorous testing to allow comparison. Previous research indicates that loose-fill polymeric honeycomb will be superior to 550 fillpower down or fibrous synthetic insulations. The proposed insulation would be used in civilian and military cold climate clothing and sleeping bags. If the Research Objectives can be achieved, the loose-fill honeycomb insulation would be a desireable alternative to down. JUSTIFICATION: The project, which was submitted under the Small Business Innovative Research Program, has been reviewed by four persons familiar with the field of research. Overall, peer review is positive, The budget appears to be reasonable, and funding is justified. RECOMMENDATION: I recommend that the project be funded.